Presidential Young Investigator Awards: Auto-Scheduling Compilers: A Performance Oriented Parallel Programming Environment

This project investigates several aspects of the problem of parallel programming. The work will be performed in three stages. The first (and main) stage involves basic research on fundamental issues of the problem including models of parallel computation user and compiler- assisted parallelism specification, task formation and synchronization, program partitioning and interprocessor communication and scheduling of parallel programs on vector-parallel architectures. During this phase the emphasis will be on the design and analysis of general policies and specific algorithms and heuristics. The second phase involves extensive simulations using real benchmarks. The last phase involves development of a comprehensive parallelizing multilingual compiler for C and Fortran which will incorporate the results of the previous two phases.